U.S.-Mexico Workshop on Industrial Integration: Today and Tomorrow; The Woodlands, TX, December 7-10, 1989.

This award will partially support a bi-national conference on industrial integration between the United States and Mexico. The conference, sponsored by the Center for Growth Studies of the Houston Area Research Center on the U.S. side and by the Centro de Investigacion Para el Desarrollo (IBAFIN) on the Mexican side, will examine the extent of bi-national integration between the two countries in a number of important industries, assess industry plans for further integration, and develop policy recommendations on how industrial integration between the two nations would be more effectively pursued. The conference will have three major outcomes: (1) preparation and presentation of detailed analyses of integration in six significant industries; (2) policy recommendations on industrial integration between the two countries; and (3) the publication of a volume of conference papers in English and Spanish. Thus, the project will inform the general public in both nations, and internationally, about how intimately integrated the industrial structures of the United States and Mexico are becoming, and the opportunities for economic growth that could be achieved through additional integration.